Microanalytical Studies of Extraterrestrial and Terrestrial Materials

This project will continue work on interstellar graphite and SiC grains with extreme isotopic anomalies in acid residues of carbonaceous meteorites. Isotopic measurements will be made of other minor elements and the PIs will also search for new types of interstellar material. An attempt will be made to obtain noble gas isotopic data on individual grains, and to correlate them with ion probe isotopic measurements.